Proposal for Collaborative Research in Eastern Tibet: Evolution and Dynamics of the Crust, Mantle, and Surface Topography

0003571
Burchfiel

This project is a continuation of the Principal Investigator's study of the growth and progression of a continent-scale, active compressional orogen, namely the Eastern Tibetan Plateau. The overarching goal of the research is to understand the kinematics and dynamics of plateau formation and continental deformation. Specifically, the research seeks to answer questions fundamental to crustal deformation in Eastern Tibet: the structure of the crust and upper mantle; the active strain field; the accomodation of strike-slip deformation; the relationship of deformation to India-Asia convergence; and the pattern and timing of plateau uplift. Research tasks include; geologic and geodetic field studies, passive source seismology, geomorphic studies, geochronologic studies, and theoretical and modeling studies of crust/mantle deformation.
***